Computer Assisted Data Collection, Video Analysis and Inter-Collegiate Collaboration in Women's Introductory Physics Laboratories

9452406 Mendez This project is designed to encourage women to study science. We will make our introductory and conceptual physics laboratories more conducive to our female students in three ways: 1) increasing self-confidence and hands-on experience by using computer assisted data collection and adopting several assignments developed by Priscilla Laws and the Workshop Physics Group at Dickenson College; 2) relating abstract concepts to the real world by using a microcomputer video digitizer to digitize videos and then analyzing them to make quantitative measurements; and 3) decreasing the feeling of isolation and introducing our students to the powerful tool of networking by having our students collaborate on experiments with physics students at Randolph-Macon Woman's College through the Internet computer network.